Global Sea Level and Late Cretaceous to Miocene Sequences: Completion of the New Jersey Coastal Plain Drilling Project

9708664 Miller In a series of meetings between 1987 and 1992, a consensus developed in the academic community that the timing and magnitude of past eustatic sea level changes and their relationships to stratigraphic sequences should be determined by drilling borehole transects on passive margins. Three crucial time intervals were identified: the Oligocene to Recent "Icehouse World," when glacioeustatic changes were clearly operating; the Cretaceous "Greenhouse World," which apparently lacked significant ice sheets: and the Paleocene-Eocene "Doubthouse World," a time for which debate continues over the existence of ice sheets. To address sequences and sea-level changes, the P.I.s designed the "New Jersey Sea Level Transect" as a series of boreholes from the onshore NJ Coastal Plain across the shelf to the slope and rise. The New Jersey Sea Level Transect is the first step in a global campaign to evaluate relationships between global sea level and passive continental margin sequences, to determine the timing and amplitude of sea level variations, and to evaluate mechanisms of sea level change. The onshore component, the NJ Coastal Plain Drilling Project, has completed 4 boreholes at Island Beach, Atlantic City, Cape May, and Bass River. This project is for the completion of the NJ Coastal Plain Drilling Project by drilling a 2000 ft borehole at Corson's Inlet, NJ and a 1200 ft borehole at Parvin, NJ. ***